Human Interaction Laboratory: A Setting for Multi-Method Research at the Undergraduate Level

The goal of this project is to improve the hands-on laboratory experiences of students in courses in social, developmental and clinical psychology at Hobart and William Smith Colleges by establishing a human observation laboratory suite. The new laboratory is equipped with video equipment for remote observation of human subjects. Employing a biotelemetry system, the physiological monitoring equipment unobtrusively records indices of emotion (e.g., heart rate) and transmits this information to the observation room. Two computer workstations in the laboratory are used for a variety of tasks: coding videotaped observations; acquiring and transforming physiological data; integrating data from videotaped observations with physiological data; and statistical analysis. The equipment will allow students to learn a variety of techniques in each of these modalities as they address substantive issues in separate areas of the discipline.